NSF FF: Planning: AI-Enhanced Immersive Career Readiness Foundry

This FINDERS Foundry award supports an AI-enhanced career-readiness framework aligned with K-12 workforce development, interdisciplinary innovation, and technology-enabled experiential learning. Workforce research consistently shows that employers prioritize soft skills such as communication, collaboration, problem solving, leadership, and adaptability as essential to employment success. However, students often lack access to authentic learning experiences that develop these competencies. This project addresses that gap by producing a scalable, standards-aligned framework that can be adapted across educational contexts. The adaptable design supports expansion of high-quality career preparation pathways.

This FINDERS Foundry award addresses a foundational gap in career readiness research: the absence of scalable models that integrate AI-supported learning, immersive simulation technologies, and competency-based assessment in K–12 education. The interdisciplinary leadership team of educators, caregivers, technologists and researchers will co-design an AI-enhanced immersive career readiness framework, develop prototype learning experiences, assess technological and implementation feasibility, and establish measurable student outcomes and evaluation strategies. These outcomes establish the research infrastructure needed to evaluate whether AI-supported immersive simulations can serve as effective experiential learning environments for preparing high school students for evolving workforce expectations.